Space Weather: An Operational Sun-to-Earth Model

Abstract: ATM 00-01851

Proposal Title: Space Weather: An Operational Sun to Earth Model

Principal Investigator: Charles N. Arge, University of Colorado

The investigators will develop a simplified model to explore issues relating to operational aspects of Sun-Earth space weather models. The main effort is to combine a set of readily modified models in a modular architecture to allow extensive experimentation with ingesting and assimilating real time data, error handling, linkages, verification, display, archiving, and other operational requirements. The set of models will consist of simple physics-based and semi-empirical models, as well as modest magnetohydrodynamic (MHD) models that can be run efficiently on workstations. The model will be made available to the Community Coordinated Modeling Center (CCMC) so that may become an operational tool accessible to the space weather community.